Source, Composition, and Stability of Soluble Iron Fluxing from Continental Margin Sediments

Iron is a limiting nutrient in the world's oceans and plays a key role in regulating the growth of phytoplankton. The main sources of iron to the open ocean are the atmosphere, through wind-blown terrestrial dust, and the seafloor, through input from continental shelf sediments. While atmospheric inputs have been well-studied, the oceanic input of iron from sediments has only sparsely been measured and, as a result, the relative importance of the sediment-derived iron to the iron pool and, ultimately, primary productivity in the oceans is poorly understood. In this study, researchers will examine the chemical properties of sediment-derived iron in the oceans to assess its contribution to the iron used by phytoplankton. Results from this study will further our understanding of iron inputs to the ocean and their importance to ocean primary productivity. The project will contribute to the training of graduate students, as well as provide educational opportunities such as a day at sea for undergraduate students in engineering and physical science.

The atmosphere and continental margin sediments are the main source of the limiting nutrient iron (Fe) to the open ocean. Yet, the chemical form of iron from sediments has not been well examined and only quantified as reduced iron or the dissolved iron passing through 0.45 µm filters. The kinetics of iron oxygenation suggests it should precipitate rapidly in the overlying waters, challenging the view that sediments are important sources of iron for primary production. To establish whether the flux of iron from sediments has important implications for primary productivity, possibly rivaling atmospheric inputs, it is necessary to demonstrate that ferric iron originating in sediments is under the form of stable iron species with potential for a high residence time in the water column. The overall objective of this project is to test the hypotheses that iron fluxing across the sediment-water interface in continental margin sediments is dissolved under the form of organic-Fe(III) complexes and that the magnitude of the iron flux is influenced by the redox conditions in the overlying waters, the composition of the complexes, and the biogeochemical processes in the underlying sediments. To test these hypotheses, the flux and speciation of dissolved Fe(III) will be quantified in the sediments of the Carolina depocenter and the Gulf of Mexico, and the biogeochemical processes regulating the production and the flux of iron as a function of the redox regime of the environment will be determined using in situ measurements and state-of-the-art voltammetric and chromatographic techniques.